CAREER: Simulating Self-Assembly at Cellular Scales

ABSTRACT
DBI-BDI: 0346981
PI: Schwartz
CAREER Award

Carnegie Mellon University has been awarded a grant to develop computational methods for biological modeling and simulation in small to medium size cellular systems. The project will develop methods for simulating self-assembly systems on small to medium scales. Self-assembly systems, collections of molecular subunits that spontaneously assemble into larger structures under appropriate conditions, are crucial to many cellular processes. Accurate models of their behavior on small scales are therefore essential to modeling cell function and reliably predicting cellular responses to various interventions. The project will accomplish this research goal primarily by developing algorithms and theory for small-system discrete-event models to complement prevailing large-system differential equation models. As an integral part of the project methodologies for teaching computional biology will be developed and used in the curriculum at CMU and in teaching computional biology to general biologists. The project is aimed at advancing the field of computional biology through the full integration of innovative and advanced research with the education of a diverse array of students.